Research Initiation Award: Computer-Aided Fixturing in Computer-Integrated Manufacturing Systems

This research stresses the flexible fixturing problem with a main goal of developing a computer-aided fixturing system for modular fixture applications in CIMS. The research includes three aspects: computer-aided fixture design, computer-aided fixture design evaluation and computer-aided fixturing management. Methods used are unique and practical. In fixture design, this research studies how to acquire and utilize previous design experience and how to practically generate a fixture design. A locating method dominated fixuring requirement analysis and fixture structure analysis are performed as the basis of the fixture design. In fixture design evaluation, criteria are explored for automated fixture design verification. In fixturing management, fixture station management and communication with other manufacturing departments are studied. Therefore, fixturing activity can be integrated with CAD/CAPP/CAM and production control systems. This project provides an engineering tool for using computer technology to design, verify, and manage modular fixtures. The application of the research results may contribute to: (1) making FMS truly flexible and CIMS practically feasible; (2) significantly reducing fixture design and fabrication time and cost in small and batch production; (3) improving quality of fixture design with the utilization of previous design experience, fixturing analysis, and fixture design evaluations; and (4) providing a practical tool for industry to deal with complex fixturing problems by using computer technology.